Collaborative Research: RESEARCH-PGR: Predicting Phenotype from Molecular Profiles with Deep Learning: Topological Data Analysis to Address a Grand Challenge in the Plant Sciences

Organisms are a consequence of information embedded in their genome expressed through molecular processes. Sequencing technologies allow biologists to extract nearly all information content from the genome. However, measuring what an organism is has not advanced as far as genomic sequencing: unlike the genome, it is not yet possible to measure the totality of information embedded in the organismal form. If all the information that is contained within organisms could be extracted, a model could be developed that would address one of the Grand Challenges in biology, the ability to predict what an organism is from its genomic information. In this project, mathematical approaches that have not been fully explored in biology will be used to extract information in data by measuring its structure. This field of mathematics has a motto: that all shape is data, and all data have shape. By measuring the shapes and gene expression patterns of leaves, the project will treat them as data from which embedded information can be extracted. Deep learning methods will then be used to predict the shapes of leaves from their gene expression profiles. As part of the connection between the project and its impact to society, students from both the U.S. and México will help analyze the data through Plants&Python, a bilingual, freely available curriculum initiated as a means to bring together plant biologists who have never coded and data scientists new to plant science, with groups that comprise U.S. agriculture.

Using X-ray Computed Tomography (CT) to measure plant morphology and transcriptome profiling (RNA-seq) to measure gene expression, the project will use the Euler Characteristic Transform (ECT) and the Mapper algorithm, two Topological Data Analysis (TDA) techniques, to extract the total information embedded in the leaf morphology of Arabidopsis accessions with contrasting developmental reproducibility. The ECT is mathematically proven to distinguish any object from any other, and the Mapper algorithm is used to visualize underlying data structures as a graph. Specific aims include: 1) using the ECT to measure the total information embedded in leaf shape and benchmarking against traditional methods to see how much “hidden” phenotypic information is revealed when measured comprehensively; 2) generating RNA-Seq gene expression profiles from identical leaves, visualizing the underlying data structure as a Mapper graph; the same will be done for phenotypic data as measured by the ECT; and, 3) predicting the precise leaf shape features associated with gene expression signatures using deep learning. By converting underlying molecular and phenotypic data structures into node embeddings, an encoder-decoder neural network will align molecular and phenotypic Mapper graphs. The result will be a mapping of gene expression profiles to features of leaf shape as predicted using deep learning methods on underlying data structures. All project outcomes will be made publicly available through long term data repositories.